Cornell Environmental Sciences Interns Program

Cornell University will initiate a six-week, residential, Young Scholars project in environmental sciences for 20 students entering the 12th grade and 4 high school teachers. This summer program will include a one-week orientation at Cornell's Arnot Forest, a five-week on-campus component focusing on research, careers, community outreach, and science ethics, and follow-up activities in schools, after- school science clubs, 4-H clubs, and other informal educational settings. A six-week MSTP component will be included, through which science teachers will design research curricula and kits which will enable them to continue their research with students in classrooms and after-school science clubs.